The Development of a Series of Exhibits on AIDS and the Immune System

The Exploratorium plans to develop a set of interactive teaching exhibits that will deal with epidemiology, immunology and virology, and through those subjects, with AIDS treatment and prevention. The purpose is to provide a comprehensive description of how the immune system works in the context of AIDS, and so help people to make rational decisions about personal and social responses to the disease. The primary thrust will be to supplement the more general AIDS educational materials by providing an understanding of the scientific basis of the disease, and to involve the public in the scientific and educative process, rather than just informing them about the subject.